Scholarship Support to Enable School District Chief Technology Officers to Participate in the 2003 Consortium for School Networking Conference and the 2nd Annual Int'l Symposium

This award supports 25 Chief Technology Officers from urban and rural school districts to attend the CoSN conference to receive technical training in the management of school networks. The meeting is being held February 25th to February 27th in Arlington, Virginia. The applications for support will be evaluated by the Consortium for School Networking and the Council of Great City Schools.